Test of Prototype Liquid-Water-Content Meter for Aircraft Use

The objectives of this research are twofold: (1) to test the ability of an existing liquid-water-meter to function successfully when exposed to high liquid water contents and icing conditions at aircraft wind speeds, and (2) to calibrate the meter under controlled laboratory conditions.